A Formalism for the Electromagnetic to Hadronic Signal Ratio (e/h) and the Energy Resolution of Hadron Calorimeters

The investigator proposes a formalism which will express (e/h) in terms of the longitudinal deposition of high energy hadrons, the number of radiation lengths in the calorimeter, the number of absorption lengths, relative weight of the electromagnetic core of the shower and the relative weight of the hadronic part of the shower. The data sample will represent lepton and hadron energies from 10 Gev to 150 Gev; and Bock's logarithmic energy dependent functions alpha, betha, delta and w, will be used to parametrize the hadron shower profiles. The formalism will be tested with data taken in calorimeters using 238U, Pb or Fe absorbers and plastic scientillator, liquid argon, or silicon readout. The PI plans to add several students to the research project at Chicago State University and therefore have developed a mathematics workshop/tutorial in that regard. The workshop incorporates individualized instruction with extensive problem solving sessions for students pursuing bachelors degrees in engineering and physical sciences. The preliminary plan will: 1) develop mathematical skills in undergraduate students; 2) assess the significance of the research and identify the analytical techniques that will be used, and 3) apply the formalism to experimental data from colliding beam experiments at CERN and Fermi National Accelerator Laboratory.